Travel to Attend: The Sixth Symposium on Turbulent Shear Flows - Toulouse, France - September 7-9, 1987

Travel support is provided for the PI to attend the VI Symposium on Turbulent Shear Flows, Toulouse, France. The PI will present a research paper, chair a session and participate in the advisory and planning activities of this biennial. The PI will also visit several research groups active in the turbulent flow research.